Mathematical Sciences: Ideas, Problems, and Methods at the Interface between Biology and Mathematics

9402623 Cooke The investigator and his colleagues organize an internationalconference that brings together applied mathematicians andmathematical and theoretical biologists to discuss research at theinterface between mathematics and biology. Mathematical modelsare presented to lend insight into a wide variety of biologicaland biomedical areas, including population and community dynamics,cell and tumor dynamics, epidemiology, immunology, and physiology.Advances in mathematical methods that are useful in analyzingbiological data and models are explored via lectures ondifferential equations, dynamical systems, functional analysis,control theory, and probability and statistics. The program forthe meeting includes eight principal survey lectures;approximately 80 shorter lectures and 20 posters by otherparticipants present recent research results. The purpose of the Conference is to provide a forum forexposition of new research in the field of mathematical biologymathematics applied in biology), and to promote interactionbetween mathematical and biological scientists. Interactionbetween mathematics and other sciences has always played animportant role in the advancement of scientific knowledge.Recently, as biological knowledge has exploded, interactionbetween biologists and mathematicians has increased. Theseinteractions have improved understanding of theoretical andpractical questions in biology, and have stimulated mathematiciansto develop new methods appropriate for these questions. In thisConference, research papers are given on mathematical analysis ofthe spread and possibilities for control of AIDS and otherepidemics, on questions about scales of measurement in ecology andenvironmental science, on radiotherapy and chemotherapy, onseveral physiological medical problems, and on other problems. Newbasic research on mathematical methodology is also reported. Aspecial effort has been made to attract a mix of established andnew researchers, includin g women and minorities. The format ofthe meeting includes plenary survey lectures, individual researchpapers, and poster sessions, thus encouraging exchange of ideasamong established and new researchers in this interdisciplinaryfield.